An Undergraduate Communication Systems Laboratory.

This project will support five communications courses with an updated communications laboratory. The intent is to give the students hands-on experience with actual equipment so that they can solidify their theoretical knowledge by means of experimental observations. Analog and digital signalling techniques will be covered, including baseband, FSK, PSK, and PCM, matched filtering, and linear and angle analog modulation. In addition, special topics will be covered in the areas of phase lock loops and antenna gain, radiation pattern and impedance matching.